Conference on the Foundations of Newtonian Scholarship to be held at the Royal Society, London, England; March 21, 1997

This one-day conference at the Royal Society in London, jointly sponsored by NSF and the Royal Society, will solidify recent advances in Newton scholarship and lay the foundation for future work. Newton's correspondence, mathematical papers, optical papers, and a variorum edition of Principia (which reveals changes undertaken in the various editions of the text) combine to lend new insights into the process of scientific and mathematical reasoning. /% />┤ _Á¥©?┤?%?À╣│/% À╝?┐>┤¢ />┤ ©/└Á /%¢? ▓ÁÁ> └╣Á┴Á┤ /¢ │?>¥Á>¥╣?┐¢ ▓` ¢?_Á ▓Á│/┐¢Á ?Â ¥©Á ¢?│╣/% ╣_║%╣│/¥╣?>¢ ?Â ¥©Á ┴?╝, ¼©Á ║╝?ÕÁ│¥ ┴╣%% ╣%%┐_╣>/¥Á ¢┐│© ╣¢¢┐Á¢ ▓` /║║%`╣>À ¥©Á ¥??%¢ />┤ ║Á╝¢║Á│¥╣└Á¢ ?Â />/%`¥╣│ ║©╣%?¢?║©╣│ ¥? ¥©Á /╝À┐_Á>¥¢ />┤ Á└╣┤Á>│Á ?ÂÂÁ╝Á┤ ╣> ¥©Á ¢│╣Á>¥╣Â╣│ %╣¥Á╝/¥┐╝Á ?Â ▓Á©/└╣?╝/% ÀÁ>Á¥╣│¢ ½║Á│╣/% /¥¥Á>¥╣?> ┴╣%% ▓Á À╣└Á> ¥? ¥©Á %?À╣│/% ║?¢¢╣▓╣%╣¥` ?Â ┤╣¢Á>¥/>À%╣>À -ÀÁ>Á¥╣│- Â╝?_ -Á>└╣╝?>_Á>¥/%- ╣>Â%┐Á>│Á¢ />┤ ¥©Á Á└╣┤Á>│Á ╝Á╗┐╣╝Á┤ ¥? ┤? ¢? ╣> / │?>└╣>│╣>À _/>>Á╝ ¼©Á &¿ ┴╣%% /%¢? Á┬/_╣>Á ¥©Á │/┐¢/% │%/╣_¢ _/┤Á Â╝?_ └/╝╣?┐¢ ¥©Á?╝Á¥╣│/% ║Á╝¢║Á│¥╣└Á¢ ┴╣¥©╣> ▓Á©/└╣?╝/% ÀÁ>Á¥╣│¢ Á À ┤Á└Á%?║_Á>¥/%╣¢¥ ╣>¥Á╝/│¥╣?>╣¢¥ │?>>Á│¥╣?>╣¢¥╣│ />┤ │%/¢¢╣│/% ║Á╝¢║Á│¥╣└Á¢ ¼©Á ║╝?ÕÁ│¥ ┴╣%% ╝Á¢┐%¥ ╣> / ¢Á╝╣Á¢ ?Â /╝¥╣│%Á¢ />┤ / ▓??, ┴╝╣¥¥Á> Â?╝ / └/╝╣Á¥` ?Â /┐┤╣Á>│Á¢ ¥©/¥ ╣>│%┐┤Á ¢│╣Á>¥╣¢¥¢ />┤ ║©╣%?¢?║©Á╝¢ ║?%╣│` _/,Á╝¢ />┤ ¥©Á ÀÁ>Á╝/% ║┐▓%╣│